ASL/LSA Conference on Linguistics and Logic to be held July 10-12, 1987 at Stanford University

Abstract Narrative The development of logic in the twentieth century has exhibited a preoccupation with logic as a specialized branch of mathematics. Since natural languages exhibit many features that are foreign to mathematical formalisms and that resist analysis by familiar logical techniques, many logicians have tended to neglect the goal of accounting for human languages and communication. All along, however, there has also been a strong countercurrent within logic devoted to these larger interests. In recent years, the challenges of natural language have seemed more urgent to logicians because of the need in artificial intelligence for theories of natural language and communication. Within linguistics as well, the need for a robust semantic component has been felt almost since the beginning of genera- tive grammar. Since modern syntax stresses the theory of syn- tactic units of arbitrary size and complexity, it requires a theory of meaning that will serve to accommodate this sort of complexity. Approaches based on logical theory have come to predominate in this area. Since applications to natural language strain symbolic logic in many interesting ways, linguists cannot in general apply logical theories "off the shelf"; the process calls for creative adaptation and develop- ment of logical material. Much of the interdisciplinary work in logic and linguistics is devoted to such problems. Since linguistics and logic are separate, well-developed disciplines with many subspecialties, it is likely that the relatively informal communication across disciplinary boun- daries that has taken place so far has left unexploited many opportunities for scientific advances that can only take place by bringing together specialists from the two fields in meetings such as the one proposed here.